High Resolution Spectroscopy of Emission Excited by ElectronImpact on Atmospheric Gases

The analysis of the light emitted atoms and molecules in the upper atmosphere leads to a knowledge of the chemical and physical reactions taking place there as energy in the form of solar ultraviolet radiation is absorbed during the day, and in the form of high speed streams of electrons and positively charged atoms is absorbed at high latitudes at night. To relate the optical observations to specific chemical reactions and to infer upper atmosphere temperature and composition and energy inputs, it is necessary to perform controlled laboratory experiments to determine the parameters that need to be used in numerical models of the processes. This award is for laboratory work to provide such parameters for reaction involving nitrogen and oxygen atoms and molecules, and in particular for the shapes of "spectral lines", i.e., the detailed distribution of the number of photons emitted versus their precise wavelength, to help sort out reactions involving the breakup of molecules from reactions involving the direct collision of electrons with atoms.